Mathematical Sciences: Geometric and Computational Foundations of Nonlinear Feedback Control

Work underway on Control of air and spacecraft that have nonlinear dynamics suggests many new problems of geometric control theory. In previous work, the PI has introduced the cauchy characteristic multifoliate structure associated with a control system. It is a basic geometric invariant of the feedback structure, ultimately determining (both locally and globally) what can be accomplished by applying state-feedback control to the apparatus. This proposed work will carry on the study of the cauchy characteristic structure both from the point of view of traditional mathematics (e.g. to what extent does the cauchy characteristic structure determine the control system up to feedback equivalent?) and from the LISP/Symbolic computation point of view. In parallel, work will also continue on the Lie- theoretic foundation of various numerical algorithms for dealing with nonlinear differential equations. For example, how can the idea of the classical Runge-Kutta algorithm be implemented for differential equations which live on a differentiable manifold that carries a Lie group structure? Many potential applications are possible e.g. to the control of rotating and nonlinear mechanical systems, as encountered in the study of aircraft and Robotics. This project falls into the broad area of control science, which is an interdisciplinary research activity involving both mathematics and engineering.